Imprimitive Geometries and Groups

A result of Cayley implies that every group has a faithful
representations as a transitive permutation group. Many have primitive
faithful representations, for instance, all finite simple
groups. Indeed the classical simple groups act primitively on the
points of a projective or polar space. However many groups have no
primitive faithful permutation representation, so imprimitive faithful
representations must be considered. In this project Hall studies
finite imprimitive groups that act as automorphism groups of
geometries. He also considers the converse---description and
characterization of geometries that come provided with a natural and
nontrivial equivalence relation. Of particular interest are
equivalence relations whose classes are the orbits of some nontrivial
normal subgroup, the group then naturally embedded in the
corresponding wreath product. The geometries studied and
characterized are highly homogeneous partial linear spaces,
particularly those associated with isometry groups of forms, where
imprimitivity for the group can come from degeneracy of the form. For
forms of degree greater than two, this leads to questions about
possible generalizations of Witt's theorem on bilinear and related
forms.

Group theory is often described as the mathematics of symmetry. That
is, many groups are best described as collections of symmetries of
geometric objects. Conversely many geometries are best characterized
by their associated groups, a point of view that goes back to Hilbert.
Finite groups appear prominently via symmetry in many fields other
than mathematics, for example, physics, chemistry, and computer
science. The building blocks of finite symmetry groups are the finite
simple groups and are realized as primitive permutation
groups---permutation groups that in an appropriate sense are
efficient. A general finite group is then glued together from simple
groups, and its symmetry realization is imprimitive---constructed from
various primitive constituents. There has been great success recently
in the description of simple groups and their primitive permuation
representations. Understanding of and facility with imprimitive
groups is the important next step. The project is aimed at giving
elementary geometric descriptions of certain imprimitive groups and
conversely characterizing and recognizing geometries starting from
properties of an imprimitive symmetry group.